Research in Nuclear Science (Physics)

Research will be carried out in the study of high energy nucleons and pairs following muon capture by nuclei. The underlying physics motivation is to probe to high momentum structure of the nuclear wave function and explore the meson exchange process. The isospin structure of giant resonances will also be studied using pion single charge exchange reactions, both inclusive and in coincidence with subsequent decay particles. The angular momentum and isospion structure of giant resonances will be studied by inelastic electron excitation, both inclusive and in coincidence with subsequent decay particles. As soon as polarized electrons become available at Bates they will be used to provide an additional degree of freedom in the study. These two latter studies are motivated out of interest in many-body nuclear structure.